Measurements and Modeling of the Behavior of Charring Polymers in Fires

The high loss of life and property in fires each year in the U.S. underscores the need for additional research on fires and fire safety. Natural and synthetic organic polymers are most frequently the materials which are primarily responsible for the propagation of fires. The Phase I objective was to demonstrate the feasibility of applying the FG-DVC computer model, which includes the processes of depolymerization, crosslinking, and the formation of char, tar, and gases, and the TG-FTIR technique, which integrates a thermogravimetic analyzer (TGA) with an FT-IR for evolved gas analysis, to the measurement and modeling of the degradation of polymers under conditions of interest in fires. Because of the importance of charring polymers as flame resistant materials, the primary emphasis in Phase I was on phenol formaldehyde resin, which is a commercially important example of a charring polymer. The main conclusions from this effort can be summarized as follows: 1) The FG-DVC model can be generalized to predict kinetics, product evolution, tar yields, and tar molecular weight distributions for phenol formaldehyde and other charring polymers over a wide range of conditions; 2) the TG- FTIR method can provide information on several aspects of polymer combustion behavior: kinetics, degration mechanisms, char formation, gas toxicity, gas and char heating value, tar formation, and flame retardance. 3) In order to further develop the FG-DVC model as a submodel for a charring polymers in a fire model, a need was identified for a new experiment to provide information on the thermal and radiative properties of a charring surface. This need can be met by a new version of the TG-FTIR experiment, to be developed in Phase II, which includes both FT- IR emission and transmission spectroscopy. The ultimate goal of the combined Phase I and Phase II programs is the development of a laboratory scale methodology for assessing the relative flammability as a function of polymer structure and fire conditions. The product would consist of an integrated software and hardware package which utilized the TG-FTIR analysis method and modifications of this method and the FG-DVC model as key components.